Behavioral Consequences of Diverse Neural Patterns from a CPG

A major goal of neuroscience is to determine the causal relationships between patterns of neural activity and consequent behaviors. This award to Dr. Alvin Murphy focuses on the behavioral consequences of divers patterns of neural activity in identified neurons of the buccal ganglion of a snail. The studies will combine intracellular recordings from identified nerve cells with simultaneous videotapes of musculature that subserves feeding movements and other oral behaviors. Behaviors will be monitored directly along with intracellular and extracellular recordings from neurons and muscles. Intracellular dye and tracer substance injections will be made to study how neurons are interconnected. Videotapes and tension measurements from muscles will be correlated with activity in the nerve cells and during behaviors. Pharmacological treatment or manipulation of sensory stimuli such as food will be used to determine the functional efficacy of the various neural patterns produced by this multifunctional pattern generator. these studies on s simple model system will contribute to fundamental knowledge about how the nervous system controls behavior.